MRCE: Minority Center for Nonlinear Optics and Optical Materials

Alabama A&M University proposes the establishment of a Center to study Nonlinear Optics and Optical Materials. Investigators at the Center will perform reserch in quantum optics and in the preparation of materials for optical and electronic systems. Studies will include the growth of bulk crystals of semiconductors and optically active materials from solution. These crystals will be characterized, resulting in the development of growth models. In addition, infrared detectors will be constructed and interactions between cosmic rays and semiconductors will be examined. The center will also be used to motivate minority students at all educational levels to consider careers in science and engineering. The strategies to strengthen partnerships with industry will be developed. This project meets the major goal of the Minority Research Centers of Excellence (MRCE) program: to increase the minority presence in science and engineering by making substantial resources available to upgrade the research capabilities of a highly research productive minority institution. The project will at the same time enable Alabama A&M to use research as a tool to increase the effectiveness of related science and engineering activities for minority groups in its region. In addition, the project will provide opportunities for minority faculty and students at Alabama A&M and nearby institutions with significant minority enrollments to engage in meritorious research that leads to publications in referred journals.